The Genetics of Speciation in Mimulus: Causes and Consequences of Heterospecific Meiotic Drive

This project addresses a fundamental questions about the evolutionary significance of non-Mendelian genetic transmission: female meiotic drive system in hybrids between outcrosser Mimulus guttatus and selfer M. nasutus, two closely related wildflowers. Evolutionary theory suggests that such elements may be important factors in speciation. The primary goal of the projects is to characterize the geographic extent, fitness effects and genetic mechanism(s) of heterospecific meiotic drive. These studies will help answer the central question of how species arise.

This research bridges topics from the ecology of natural populations to the molecular mechanisms of meiosis and cell division. This project will involve undergraduate and graduate students, particularly women, and will provide student researchers with an introduction to genetic concepts and laboratory work in the context of natural plant populations.